US-Brazil Cooperative Research: Monitoring and Diagnosis of Process System Components

Upadhyaya 99-01201

This US-Brazil award supports collaborative research between Dr. Belee R. Upadhyaya, University of Tennessee, Knoxville and Dr. Daniel K. S. Ting, Instituto de Pesquisas Energeticas e Nucleares (IPEN), San Paulo, Brazil. They will conduct a two-year research study on monitoring and diagnosis of process system components.

The principal goal of this research is to develop new on-line monitoring and fault detection methods to improve the operational safety, reliability, and economic gains of large industrial systems.

The proposed work is complementary. The US PI will have access to two IPEN research reactors and a full scale thermal-hydraulic laboratory. Access to IPEN data and an understanding of issues relative to plant aging and life extension will benefit not only the PI but has application s to US industrial interests in general.
Brazil will benefit from PC based signal processing and applied artificial intelligence modules to be developed by the University of Tennessee for testing at IPEN. The Brazilian commercial nuclear power plants are the ultimate receives of this technology.
***